Enterprise-wide Simulation and Analytical Modeling of Comprehensive Freight Movements

The proposed work will develop a multimodal network analysis to simulate
the effects of e-commerce and different freight supply chain costs on the
movement of goods. Major physical actions, including information exchange,
and decisions required to move goods from source to destination will be
simulated. A method will be developed for simulating large numbers of
individual freight shipments by vehicle and for assigning them to specific
links in the US truckrailwaterair freight transportation network. Within a
supplychain management framework, information and cash flow will be
incorporated into the network analysis. Created in the 1960's, the
Internet has become an open access, inexpensive, and globally available
means for rapid correspondence with the rest of the world. On-line
Internet trading is now a major form of business activity. What this rapid
transition to e-commerce ultimately implies for the U.S. transportation
sector remains to be seen. It is likely to initiate some profound changes
in both domestic and international product supply chains, leading to some
important new patterns of freight movement which can only be modeled by
inter-relating the physical and information networks. The focus of this
research will be on the development of a sound theoretical base using
information in the literature as a guide to proof of concept instead of an
empirical analysis.

This award is made under the Exploratory Research on Engineering the
Transport Industries (ETI) program solicitation.